DLI Phase 2: Informedia-II: Integrated Video Information Extraction and Synthesis for Adaptive Presentation and Summarization from Distributed Libraries

Abstract

IIS-9817496
Carnegie Mellon University
Howard Wactlar
$1,000,000 - 12 mos.

DLI Phase 2: Informedia-II: Integrated Video Information Extraction and Synthesis for Adaptive Presentation and Summarization from Distributed Libraries

The Informedia-II Project continues the pursuit of search and discovery in the video medium. This phase will transform the paradigm for accessing digital video libraries through meaningful, manipulable overviews of video document sets, multimodal queries, and adaptive summarizations of very large amounts of video from heterogeneous distributed sources. Video information collages are the key technology in Informedia-II and will be built by advancing information visualization research to effectively deal
with multiple video documents. A video information collage is a presentation of text, images, audio, and video derived from multiple video sources in order to summarize, provide context, and communicate aspects of the content for the originating set of sources. The collages to be investigated include chrono-collages emphasizing time, geo-collages emphasizing spatial relationships, and auto-documentaries which preserve
video's temporal nature. Users will be able to interact with the video collages to generate multimodal queries across time, space, and sources.

Together with external partners, the project will also create an accessible, lasting digital video archive of historical, political and scientific relevance. Vast collections of video and audio recordings have captured the events of the last century, yet these remain a largely untapped resource of historical and scientific value.